PYI: Computational Issues in the Solution of Partial Differential Equations

Numerical solution of partial differential equations is one of the most computationally difficult tasks in existence, so only the most efficient algorithms can be used. The actual numerical formulas used in the algorithms are fairly well understood by now, but the computational issues arising from geometrical issues are less so. One line of research is intended to determine the proper handling of grids for partial differential equations. Solution techniques such as finite element methods require the subdivision of the geometric domain into small polygonal elements. This research will establish the best ways to carry out this subdivision, especially when the domain has a complicated shape. It will determine the proper method to partition the domain among processors of a parallel computer. Boundary element techniques show great promise for handling complicated geometries. They are receiving recent attention because of their newly-discovered links to wavelet transformations. The research seeks new algorithms that will speed up boundary element calculations.